Mathematical Sciences: Statistics Research Computing Equipment

This project is an equipment grant under the activity Grants For Scientific Computing Research Equipment For The Mathematical Sciences program. The project involves the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required jointly by several research projects and would be difficult to justify on one project alone. This research equipment support from the National Science Foundation is coupled with discounts and contributions of equipment from manufacturers and significant cost-sharing from the submitting institution. This project provides a good example of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment in this proposal will support basic and applied research in a department of statistics. The equipment will be utilized in the following projects: Bootstrap methods and approximate linear inference for dependent observations, L(1) and sup-norm asymptotic properties for variable bandwidth kernel function estimators including Fourier inversion estimators, epidemic processes, statistical properties of autoregressive processes, and research in the design and analysis of experiments.